Structural Faults and Repair International Conference, London, England, July 1995

This award is for travel to the 1995 Sixth International Structure Faults and Repair Conference to be held in London, England. The participants will present technical papers, and chair sessions. Following the conference, a workshop will be conducted to organize a U.S. - European workshop on bridge engineering to be held in 1996.